1989 Micro Electromechanical Systems Workshop Travel Assistance, Salt Lake City, February 20-22, 1989.

This project will provide assistance to academic personnel who are engaged in Microelectromechanical systems research by providing travel funds to attend the 1989 IEEE Micro Electromechanical Systems Workshop, to be held in Salt Lake City on 20-22 February 1989. An announcement in response to workshop registrations will be made to notify participants of the availability of support. A committee of six senior researchers in the field will select the candidates for travel and subsistence assistance awards. The awards will seek to encourage innovative research and special consideration will be given to aiding young researchers in the field. The following set of priorities will be used in making the awards: First Priority - graduate students who are presenting papers; Second Priority - researchers less than 5 years beyond their doctorates who are presenting papers; Third Priority - researchers having a proven record of productivity in the area and who can justify a genuine need for travel assistance. In order to stretch the available funds, partial travel grants will be considered. All support will be used to aid attendees from the U.S.